Computer Science, Engineering, and Mathematics Scholars Program

Students are provided with services and activities that are designed to promote the following: 1) improve the undergraduate educational experience of students in relevant disciplines; 2) increase the number and percentage of students completing the first stage of the baccalaureate study and those student receiving degrees in relevant disciplines; 3) improve the likelihood of Program Scholars post-baccalaureate placement in employment or graduate programs in technical or related disciplines; and 4) provide the opportunity to further strengthen partnerships with employers and the institution.

Forty students are chosen for participation in the CSEMS Program: fifteen (15) freshman level and twenty-five (25) junior level students who are enrolled in full-time, baccalaureate degree programs in Engineering (Electrical, Mechanical and Computer) and Engineering Technology (Electrical, Industrial, Manufacturing, and Mechanical) Programs. Each scholar is paired with a mentor who is a member of the Program Scholars discipline area in which he/she is pursuing his/her baccalaureate degree; the mentor serves as an advocate for the scholars academic and career success. Activities that some of the scholars are involved in include: tutorial assistance, visitations to research laboratories and graduate programs, career counseling, attendance and/ or participation in national professional conferences within their discipline and national student research conferences, writing assistance, and professional work experiences.